The impact of topology on variational problems between manifolds

Abstract

Award: DMS-0101050
Principal Investigator: Fengbo Hang

This project will study the impact of topology on some
variational problems for maps between manifolds and investigate
some conformal invariant differential equations. Sobolev spaces
of weakly differentiable maps appear naturally in the solution of
variational or differential equations problems, but the
fundamental theorems on Sobolev spaces of maps between regions in
Euclidean spaces are not necessarily reproduced for maps between
manifolds. Topology in the domain and range of a mapping space
can prevent approximation of an arbitrary Sobolev map by smooth
maps and can force singularities to appear in solutions to
variational problems. The principal investigator's work aims to
understand the analytical description of some of these
topologically forced singularities. Some particular topics
include the rectifiability of defect measure of a general Sobolev
map, Ginzburg-Landau type approximation for maps which are not
weak limits of smooth maps, gap phenomena, extension of maps with
energy control, travelling waves in planar antiferromagnets, and
singularities of minimizing p-harmonic maps. Tools include
geometric measure theory, analytical techniques for simplified
Ginzburg-Landau models, differential topology, and homotopy
theory.

Physical problems often admit formulations that seek to minimize
energy or some energy-like quantity over a large family of
allowable configurations. For example, the path of a beam of
light follows the shortest route between two points, minimizing
time and distance. An important mathematical device for solving
such "variational problems" is sometimes called the direct
method: a sequence of realizable configurations that drive energy
down toward a lowest possible value is used to construct a
genuine minimizer, usually by picking out a subsequence that
converges. To make this process work mathematicians tend to work
in enriched environments such as the Sobolev spaces cited above.
These make convergence easier to establish, and then one has to
show that the candidate minimizer is actually present in the
original setting. It is a relatively recent discovery that this
procedure sometimes fails if the domain and range of the maps
being studied has a bit of topological complexity, and the
principal investigator's projects seek to analyze the nature of
these occasional failures.